Postdoctoral Fellowship: MSPRF: Instabilities of Nonlinear Water Waves

This award is made as part of the FY 2024 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Ryan Creedon is “Instabilities of Nonlinear Water Waves”. The host institution for the fellowship is Brown University and the sponsoring scientist is Bjorn Sandstede.